Terahertz, High Electric Field Quantum Transport in Verticaland Lateral Superlattices

Electrical transport in semiconductor superlattices and nanostructures is expected to exhibit strong non-linearities in large, high frequency electric fields. Such fields and frequencies are available from the Free Electron Laser Facility at UC Santa Barbara. This research focuses on dynamic localization, quenching of the conductance in the presence of strong, high frequency, electric fields, and photon assisted tunneling in semiconductor superlattices and multi-quantum wells. Both vertical and lateral superlattices and nanostructures will be investigated. %%% Modern materials synthesis and processing has enabled researchers to fabricate semiconductor structures that are so small that the "wave nature" of the electron controls their electrical properties. These semiconductor nanostructures are characterized by a very non- linear dependence of electron current on applied voltage, reminiscent of how a transformer works in many everday applications. However, this research addresses electrical responses many millions of times faster than in ordinary transformers, and hence may lead to the development of new devices which function at frequencies beyond even the radar frequencies common in the aircraft industry.